An Undergraduate Coastal Hydraulics Laboratory Wave Genera- ting Channel.

This project is to construct a wave generating channel for the undergraduate fluids laboratory in coastal hydraulics. It will provide the students equipment to study wave mechanics, kinematics, and wave transformation. The channel will be used in courses covering coastal hydraulics and coastal engineering.